Constructing Optimal Factorial Designs for Multiple Groups of Factors: Theory, Methods and Applications

Fractional factorial designs (FFDs) are among the most popularly used
experimental plans in practice. Most existing theory and methods for
FFDs assume that the factors involved in an experiment are symmetrical.
In many applications, however, this assumption does not hold, because
experiments can involve multiple groups (or types) of factors (MGFs).
Different types of factors have different implications for design and
analysis, therefore they need to be treated differently. Three typical
examples are Taguchi's robust parameter design experiments, Addelman's
compromise plans and experiments with both qualitative and quantitative
factors. This project is intended to develop general theory and methods
for constructing optimal designs with MFGs. Based on the preliminary
results on robust parameter design, various trade-off strategies will
be generalized to designs with MFGs and their theoretical properties
will be studied and characterized. Due to the presence
of different types of factors, the aliasing properties of these designs
are much complicated. The investigator will study the letter patterns
and the coset patterns so as to propose proper criteria for the
construction of optimal designs. The structure function approach developed
by the investigator earlier will be further extended and used in this
research. The theory and methods for constructing nonregular FFDs with
MGFs will also be investigated and developed. Based on the theory and
methods developed in this project, optimal designs with economical run
size will be constructed and tabulated for experimenters in practice.

Statistical design and analysis of experiments are widely used in
scientific investigation and industrial research and development. The
study of experimental design is aimed at constructing optimal experimental
plans that allow experimenters to collect data and discover knowledge in
an economical and efficient way. This project is motivated by the
application of experimental design methodology for quality improvement
in manufacturing industry, especially the robust parameter design
technology. An experiment in robust parameter design usually involves
multiple groups (or types) of factors, which have different implications
in design and analysis. Most existing design theory and
methods assume the symmetry between factors, thus are not directly
applicable for robust parameter design. In general, experiments can
include multiple groups of factors (MGFs), which should be treated
differently in order to generate optimal experimental plans. In this
project, the investigator intends to develop general theory and methods
for constructing optimal factorial designs for experiments with MGFs.
The project consists of three major components. The first component is
to investigate the combinatorial and aliasing properties of fractional
factorial designs with MGFs; the second component is to propose various
optimality criteria for the construction of optimal designs with MGFs;
the third component is to theoretically characterize the optimal designs
and tabulate them for experimenters in practice. The project will advance
the theory and methodology of experimental design as well as enhance
efficient data collection and knowledge discovery in scientific
investigation, quality improvement and other applications.